Computer Aided Design of Electro-Optical Information Processing Systems

This research is on defining requirements for computer aided design of electro-optical information processing systems. Three steps are being pursued. First, define levels of abstraction for electro- optical systems, analogous to the behavioral, structural, electrical and physical abstraction levels of VLSI design. Second, characterize functional, physical and parametric models necessary to analyze designs at different levels of abstraction. Third, specify requirements for a multi-level simulation system.